CMPS Summer Research Conference; August 8-10, 2018 in Los Angeles, CA

The Collaborative Multiracial Post-Election Survey (CMPS) Summer Research Conference to be held at UCLA, August 8-10, 2018. The conference will bring together a multidisciplinary group of about 80 scholars at varying stages of their academic careers to: (1) present cutting-edge research using the 2016 CMPS, merged with hundreds of aggregate level variables from the 2000, 2010 Census, and the 2015 American Community Survey (ACS); (2) contribute to the development of the 2020 CMPS; and (3) build an academic pipeline of scholars in the political sciences and social science more broadly. Invited conference attendees will include a diverse and interdisciplinary group of junior and senior faculty, graduate and undergraduate students, as well as postdoctoral fellows from large research institutions, smaller liberal arts colleges, community colleges, Historically Black Colleges and Universities (HBCUs) and Hispanic Serving Institutions (HSIs). Invited research papers will use data from the 2016 CMPS to examine the role of race, ethnicity, gender, religiosity, linked fate, partisanship, health disparities, political mobilization, and other sociodemographics in shaping political behavior, attitudes and public opinions toward various policy concerns. Broad racial/ethnic diversity, gender balance, and junior-senior collaborations among the presenters will be encouraged. While research papers will be invited, the conference will be open to the broader public.

The proposed 2016 CMPS Summer Research Conference and Planning Meeting has several broader impacts: (1) enhance the shepherding of existing manuscripts from preliminary drafts to publication in the study of race, ethnicity and politics, immigration, political psychology, political behavior and public opinion; (2) broaden cross-institutional faculty and student collaborations and co-authorships; (3) enhance junior-senior networks and mentorship opportunities (4) collaborative planning sessions for the 2020 CMPS, to be fielded following the 2020 Presidential election. Our planning sessions will include topics such as: (1) expanding the CMPS in several ways including increasing the sample size from 10,000 to 20,000 cases including the following groups: Latinos, African Americans, Asian Americans, Whites, Muslim Americans, black Caribbean immigrants, black African immigrants, Native Americans, and Native Hawaiians; (2) we will develop our strategy to incorporate the first CMPS Panel Survey, following a Presidential election, which focuses on a subset of issues important to the study of race, ethnicity and politics in the United States over time; (3) survey question development. The conference will deepen and diversify the participants' network ties throughout the discipline. The conference will have positive spillover effects within the discipline of political science and within the participants' Colleges/Universities: Participants can use the insights from the research conference towards postconference activities to collaborate, train, mentor, and network with scholars in our profession.